Mathematical Sciences: The Application of the Stepwise BayesTechnique to Some Statistical Questions

The close relationship between the admissibility of an estimator and its Bayesness with respect to some (possibly improper) prior distribution will be studied in the finite population sampling situation. A Bayesian interpretation of classical procedures such as the maximum likelihood estimator will be provided for samples from finite populations. The stepwise Bayes technique will be used to provide a noninformative Bayesian justification for procedures in finite population sampling which reflect the statistician's prior beliefs that members of the population which are close together are more alike than those which are far apart.